Hawaii Networked Learning Communities

The Hawaii Department of Education, in partnership with the University of Hawaii at Manoa, will conduct an Implementation phase RSI project for teachers and administrators in rural, disadvantaged schools on the islands. The project will rely heavily on leadership development opportunities and implementation of curricular standards, to achieve better learning opportunities for the targeted students. Much of the networking and inservice training will be conducted through distance learning technology.